Mathematical Sciences: Development, Analysis, and Applications for Numerical Methods for Nonlinear Partial Differential Equations

The principal investigators and their collaborators study the development, analysis, and applications of numerical methods for nonlinear partial differential equations. The three main topics addressed are: (1) high resolution methods, including shock capturing, front capturing, numerical homogenization, and particle methods, (2) multiscale analysis applied to these and other related problems, and (3) fast methods for linear evolution equations based on multiscale analysis and high frequency asymptotics. Engineering and physical applications studied include combustion, fluid dynamics, crystal growth, Stefan problems, microwave scattering, and reacting gases. These innovative numerical methods are used to simulate real world problems in the areas of aeronautics, oil recovery, materials science, and environmental science. Transition to industrial and military application is made in the above areas, as well as in low observables, semiconductor device modelling, and shape recognition. These methods are applicable wherever the phenomena to be studied have sharp changes of state variables or are beyond the resolving capabilities of standard methods.